Motions and Conformational Properties of Macromolecules in Solution

Research will be conducted in the general area of the dynamics of conformational change in polymer molecules in solution. Experimental studies of oscillatory flow birefringence (OFB), viscoelasticity (VE), oscillatory flow dichroism (OFD) and time resolved elastic light scattering from solutions subjected to periodically time varying flows are to be carried out. Some studies will utilize existing instrumentation for wide effective frequency range measurements in highly viscous solvents which also provide extensive temperature dependence information; new instrumentation providing moderate to high frequency VE data will be employed to obtain wide frequency coverage in low viscosity solvents. Additional OFB instrumentation for high frequency studies in low viscosity solvents will be constructed and characterized. Detailed experimental studies of the effects of concentration, temperature, molecular weight, and overall chain topology on OFB and VE properties will be continued and compared with various theoretical predictions. Bead-spring model calculations of the frequency dependence of the polymer contribution to VE and OFB properties (dilute solutions) will be continued for regular combs with randomly placed branch sites, stars with unequal arms, and randomly branched chains to assess the potential of chain dynamics in general, and these techniques in particular, for detailed branching characterization of more typical industrial polymers than have been modeled in our previous work. Studies of the role of local structure (side groups, tacticity, microstructure) and solvating environment modifications in the neighborhood of polymer chains will be continued and expanded to include more widely different polymer structures.